Small: CIF: Foundations of Next-Generation Reliable, Energy-Efficient and Secure Distributed Storage Systems

This project targets the theoretical foundations of the next generation of large scale distributed storage systems, which are currently undergoing explosive growth because they form a critical component of cloud computing. This growth has been driven primarily by a system-building approach, and the theory is underdeveloped and lagging behind.

This project develops the mathematical foundations as well as practical engineering constructions related to meeting the data-integrity challenges of next-generation distributed storage systems, and focuses on: (i) Energy-aware Distributed Storage Network Codes aimed at optimizing system energy tradeoffs across the dimensions of storage cost, network bandwidth, disk access cost, and encoding/decoding complexity; (ii) Secure Distributed Storage Capacity with regard to both active and passive attacks; and (iii) Latency-minimized Distributed Storage Systems that minimize user-experienced latency through codes by exploring the complex interplay between coding and queuing delay.